Materials Research Laboratory Program

The Materials Research Laboratory (MRL) under the direction of Theodore H. Geballe at Stanford University has three major objectives: to support multidisciplinary efforts in materials research which require the participation of several investigators to make progress; to fund an important set of central facilities which support a wide range of materials research on campus; and to start outstanding new research efforts rapidly and intelligently through the use of "seed money". Of the 60 or so faculty members currently active in the MRL, about 35 participate in thrust area research or receive direct MRL project support. There are about 35 graduate students and 4 postdoctoral research associates in the program, which maintains strong links with industrial and government research laboratories through cooperative research. Seven students participate in the NSF "Research Experience for Undergraduates" program through the Stanford MRL. The research program includes major thrust areas in optoelectronic and infrared materials, polymer structure and dynamics, structure and properties of thin films (primarily high- temperature superconducting materials), and photon materials research using free electron laser and synchrotron sources to address electronic properties of surfaces and interfaces. A particular strength of the Stanford MRL is its ability to span the range from basic science to engineering the individual thrust areas as well as in the program as a whole. The thrust research is strongly interactive, faculty are first-rate and the quality of students and postdoctoral associates is very high. The MRL is well equipped and is addressing scientifically challenging and technologically significant research problems. The research on optoelectronic and infrared materials, polymers, and high-temperature superconducting thin films is at the forefront; the research on photon materials science involving the free electron laser and synchrotron radiation studies of surface chemistry is an exciting new initiative. Seed funding is used effectively, and there are strong interactions with industrial research groups.